1992 Gordon Research Conference on Optical Phenomena in Glass, Tilton, N.H.

This Gordon Conference on Glass will be held on June 29-July 3, 1992 at the Tilton School, Tilton, NH. Its theme is Optical Phenomena in Glass. It follows the traditional Gordon Conference format with two discussion periods each day and nine discussion altogether during the week. In addition, this conference has two poster sessions. Discussion topics link laser and glass in their multi-faceted symbiotic aspects. The coverage of topics is extensive with the central focus on the optical phenomena in glass. %%%% This Gordon Conference covers topics which are very timely and important in many new and exciting technological advances, such as glass fiber laser for telecommunication industries, and new dopant ions and optical transitions in fluorescence upconversion processes for new lasers.